An Algorithmic Methodology for Validation of Mixed Hardware/Software Systems

Modern integrated systems are often a mixture of hardware and software
components. Debugging and verifying these embedded computer systems
requires the integration of hardware and software verification mechanisms.
This research is investigating methods for checking correctness of an
embedded system (hardware and software) design by verifying that a
description of the design has the proper behavior as elicited by a series
of input stimuli. The approach is called coverage directed validation, and
coverage metrics are being devised. These measure the extent of design
verification provided by a set of functional simulation vectors, which
compute statement execution counts (controllability information), and check
to see whether effects of possible errors activated by program stimuli can
be observed at the circuit outputs (observability information). In particular,
the project is exploring efficient methods to compute observability-based
code coverage metrics that can be used for both embedded software and
HDL coverage.